POWRE: Regulation of Fat-Cell Development in Drosophila

Dr. Huff will carry out a research project whose broad goal is to understand the genetic program controlling how cells are selected to become fat cells. She will characterize a key regulatory gene necessary for fat-cell development. These studies will be performed in Drosophila. Characterization of this fat-cell regulatory gene will provide insights into key processes by which cells are committed to a particular cell fate and may lead to advances in understanding how a multicellular organism develops.

This work is supported by NSF's POWRE program that provides opportunities for women to reenter the scientific community. Dr. Huff's research project will provide her with additional training in genetics and developmental biology. Furthermore, the results of this project will lead to several different lines of investigation for future studies.